Adaptive Real-Time Control for Three-Dimensional Active Attenuation of Sound

This project addresses the topic of three-dimensional noise control. The majority of practical noise problems, such as machinery noise, are three-dimensional and require research of the type undertaken in this project. There is a strong need for control strategies which can be applied easily and inexpensively to such systems and be adaptive and robust enough to operate under major variations in operating conditions. This project investigates the feasibility of improved control schemes by applying advanced control techniques to a reference model generated by the boundary element model. Wave propagation is modeled using the Kirchoff Integral equation. Finally, a control strategy based on model reference adaptive systems is developed. The control scheme is tested in the acoustic chambers on several machinery noise problems.